Acquisition of a Multiple Peptide Synthesizer and Laser Desorption Mass Spectrometer

The W.M. Keck Foundation Biotechnology Resource Laboratory at Yale University provides a full range of protein and nucleic acid analytical and synthetic services to nearly 600 principal investigators at Yale University, Cornell University, Columbia University, Harvard Medical School, Johns Hopkins Medical School, Mt. Sinai School of Medicine, Rockefeller University, Sloan-Kettering Cancer Center, Texas A&M University, and the universities of California, Illinois, Michigan, Texas and Virginia as well as at another 123 institutions. Each year this facility completes more than 10,000 services including the sequencing of ~750 proteins and peptides. The vast majority of the latter samples are HPLC-purified peptides that have either been eluted from MHC molecules or that have been isolated from tryptic digests carried out by the Keck Facility on SDS PAGE- separated proteins. Although all these peptides gave symmetrical absorbance peaks upon HPLC, amino acid sequencing demonstrated that nearly one-third of these samples were, in fact, either mixtures of peptides, artifact peaks resulting from Coomassie Blue and other reagents or, were lost prior to sequencing due to adsorption onto plastic surfaces. The ability of the requested laser desorption mass spectrometer (LDMS) to routinely determine masses on 50- 500 femtomole amounts of peptide will, in most instances, enable the prior identification of those two-thirds of the samples which contain only a single species in the expected mass range (for a 10-40 residue peptide) and which are therefore suitable for amino acid sequencing. In addition to preventing the needless sequencing of unsuitable samples, the resulting masses will confirm residues which would have been only tentatively assigned by Edman degradation and will establish the length of these peptides, which is of particular concern in characterizing MHC bound peptides. Other applications envisioned for LDMS are in characterizing posttranslational modificati ons of proteins and, possibly, as a quality control monitor of oligonucleotide synthesis. The other instrument that is requested, a multiple peptide synthesizer capable of the simultaneous synthesis and automated cleavage of 96 peptides, will need the increasing demand for large numbers of economically priced, high quality synthetic peptides. Currently, several laboratories at Yale are synthesizing as many as 100 peptides/year using a manual system of multiple peptide synthesis. Obviously, acquisition of a multiple peptide synthesizer would significantly increase research productivity in these laboratories and would bring the cost of these essential oligomers within reach of many more investigators. If funds are provided, these two instruments will immediately be brought to bear on a large number of important research projects that range from characterizing peptides bound to MHC molecules in T cell responses to increasing our understanding of the biochemical basis of autoimmunity, protein folding, posttranslational processing of a parathyroid-like hormone related protein, isotype switch recombination in activated B lymphocytes to biological applications of peptide nucleic acids. The high level of technical expertise in the Keck Facility virtually guarantees that these instruments would be expertly maintained and the extremely large number of Yale and non- Yale investigators served by this facility ensures that the positive impact of this equipment on biochemical research would be large and would extend well beyond Yale University.